A Genetic Analysis of Yeast Golgi Function

The proposed research is a genetic approach to understanding the biosynthesis and action of the golgi apparatus in yeast. The sec14 mutation, which causes an apparent block in golgi function at high temperature, will be used to identify other genes whose products contribute to correct function of the golgi. Mutations (glg) which suppress the effect of the sec14 defect will be isolated and characterized. Two classes of such mutations are expected: those that obviate a need for the sec14 product, and those which allow the mutant product to function. Preliminary data shows that glg mutations occur in at least four different complementation groups. None of the supressors so far identified are intragenic; some are themselves conditional lethals. Using these mutations as starting material, the glg structural genes will be isolated and characterized. Genetic and cytological techniques will be used to examine the role of the glg products in normal golgi function. Secretion of proteins by eukaryotic cells proceeds via an elaborate series of membranous structures in the cell. Following their synthesis on the endoplasmic reticulum, proteins that are to be secreted move to the golgi apparatus, where they are subject to a variety of modifications, and then move on to the surface of the cell. Knowledge of golgi function has been largely obtained through cytological observation of cell types that are poorly adapted to genetic manipulation. Recent work has established the utility of yeast as an experimental organism for the study of protein secretion, and a number of mutations which affect the process have been isolated. The proposed research makes use of a yeast mutant which is defective for golgi function at high temperature. Selection of second-site mutations which restore function will be used to identify other genes whose products participate in the assembly and function of the golgi. These studies should provide important knowledge about a fundamental aspect of cellular physiology.